Conference: Symposium on Undergraduate Research - 26

This award provides support for undergraduate students who are US citizens or permanent residents to attend and participate in the Symposium on Undergraduate Research held at the Laser Science XLII Conference, September 28, 2026 in Rochester, NY. The first symposium was held in 2001 and had 10 students, but the symposium has grown and thrived to its present size of approximately 70 students from all parts of the country and typically from at least 60 different colleges, universities, or institutes. The symposium is part of a large conference, and the students participate in other parts of the conference as well. It provides the opportunity for these students to attend a national meeting, provides many of them with their first opportunity to give a public talk or poster, provides the opportunity for collaboration, and networking that is vital to their future careers as professional scientists and to encouraging them to continue along such a career path. As such, the symposium contributes to providing the US with its next generation of highly educated scientists.

The meeting is scheduled to be held in Rochester, NY in September 2026. It offers an opportunity for undergraduate students to present their research results on a broad range of topics including diffraction, microscopy, semiconductors, lasers, detectors, quantum information, interference, spectroscopy, precision measurements, among others. It also provides the students the opportunity to interact with senior scientists primarily from the United States, but also the broader international community. Support is provided only for students who are US citizens or permanent residents.